U.S.-India Cooperative Research: Earthquake Hazards in the Himalayan Foothills of Northwest India, Award in Indian Currency

INT-9634605 Thakur Description: This project addresses three important aspects of the neotectonics of the Himalayan foothills and adjacent plains of India-the long-term slip rate on the plate boundary fault, the recurrence interval for great Himalayan-front earthquakes and the amount of strain released within the Himalaya rather than the Himalayan front. The work involves construction of balanced sections using surface outcrops, drilling and seismic reflection profiles, mapping of Quaternary deposits, trenching and geomorphic analysis of river profiles. This research is in collaboration with the Wadia Institute of Himalayan Geology and the Oil and Natural Gas Commission of India. Results are of fundamental interest and considerable utility in the assessment of potential earthquake hazards in the Himalayan foothills of northwest India. Scope: The project requires dollar funding for data interpretation and training of Indian scientists in the US and Indian currency to support travel to India and to supplement field research costs. Government of India Clearance for this collaborative project allows US scientists to conduct field work in sensitive border areas of the Himalayas. ***